The Accessible Calculus Project: Advancing Equity by Democratizing Access to Advanced Mathematics

This project is a three-year research collaboration involving the Algebra Project, the Center for Innovation in STEM Education Research at Kennesaw State University, and the National Society of Black Engineers. The project aims to demonstrate that the way in which mathematics curriculum is designed, taught, and practiced impacts access to and success in Calculus. The project will work with two teams of math teachers and their students to introduce and develop the concepts of Calculus in the context of high school Algebra II. This approach has the potential to raise the level of quantitative literacy for all students and increase the pool of Calculus-ready and hence STEM-ready students.

The primary goal of this project is to develop a comprehensive, standards-aligned Algebra II curriculum based upon the Algebra Project’s Polynomial Calculus and Five-Step Curricular Process. This geometric introduction to differential and integral calculus does not require the mechanisms of analysis. And the experientially based Five-Step process emphasizes student voice, drawing on children’s natural language to develop meaningful, connected understandings of abstract mathematical ideas. A second goal is to enhance the knowledge and skills of participating teachers and students through this collaborative curricular development. Both teachers and students will gain a deeper understanding of mathematics, while teachers also learn student-centered pedagogies and curriculum design. Finally, the project aims to encourage participants to recognize their voice and expertise, gain agency and a positive identity in mathematics or mathematics education. Drawing upon the tenets of Participatory Action Research, the youth, teacher, and expert researcher team will develop case studies to examine the emergence of voice, agency, and identity among participants in the project. In addition, the expert research team will determine the extent to which students and teachers have mastered the fundamental concepts of the differential and integral calculus, and identify the critical elements of mathematics instructional practice, both in formal and informal learning environments, that students and teachers consider valuable.

This collaborative project is funded through the Robert Noyce Teacher Scholarship Program (EDU Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.